Mathematical Sciences: Geometry of Banach Spaces and Operator Spaces

Johnson and Pisier will investigate problems in the isomorphic theory of Banach spaces and operator spaces. The problems to be considered involve: local theory of Lp and of operator spaces, weak Hilbert spaces, probabilistic inequalities, function algebras over the ball of a Banach space, polynomially bounded operators, bounded homomorphisms on C*algebras, infinite dimensional geometry of Banach spaces and operator spaces.